Collaborative Research on the Microstructure of Financial Markets

An important feature of traditional economic theory is the extreme degree to which the institutional structure of markets is simplified, and often not considered as an integral part of the market mechanism. This approach is never entirely appropriate. When individuals or firms perceive a way in which the efficiency of the trading process can be improved, they may be able to realize a profit by establishing an institution or market which makes this improvement. The exclusion of the processes which determine market structure is a serious deficiency of conventional analysis for at least for two reasons. First, to adequately understand the functioning and evolution of markets requires the explicit modeling of institutional features. Secondly, welfare questions concerning the efficiency of resource allocation in market economies cannot be addressed nearly as convincingly if market structure is not accounted for explicitly. The purpose of this project is to investigate the endogeneity and operation of financial markets and institutions and the implications for the efficient allocation of resources.